Postdoctoral Research Fellowships in Chemistry

Dr. Omar M. Yaghi has been awarded a Postdoctoral Research Fellowship in Chemistry. Dr. Yaghi's doctoral degree was from the University of Illinois under the supervision of Professor Walter G. Klemperer. Dr. Yaghi intends to continue research at Harvard University under the sponsorship of Profesor Richard Holm. Dr. Yaghi's area of postdoctoral research and training will be structure and reactivity of metal sulfide clusters. Longer term, he plans to extend his studies to metal sulfur, chalcogenide, oxide and nitride superclusters and organic/inorganic composites. The Postdoctoral Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D.s and attract them into meaningful careers in contemporary chemical research and teaching.